Student Travel Support for the 27th IEEE International Conference on Software Maintenance (ICSM 2011)

This grant provides travel support to students so that they can attend the International Conference on Software Maintenance (ICSM) which this year is being held at William & Mary in Williamsburg, Virginia in September 2011. ICSM is a high quality conference addressing the research needs of the software development lifecycle. Attending enables students to hear the latest results in the field, meet with other researchers, and build community with the next generation of researchers, including the global community.